Access to MIDnet and NSFNET

Currently there is no mechanism for state institutions in South Dakota to exchange large amounts of information at high speeds with other researchers or computers. Access to a network which provides such capability is becoming essential to research in many disciplines. The University of South Dakota is requesting funds for equipment to support a 56,000 bits per second connection to MIDNET, the mid level network located in that region of the country, which in turn is connected to the NSFNET Backbone. This connection will provide researchers in South Dakota with the opportunity to effectively collaborate with colleagues and to access computing resources outside the state. Membership in MIDNET will ensure hardware compatibility, assistance in getting started, technical collaboration, and provide for coordination. Also, users at other colleges and universities in South Dakota will be provided with the support necessary for accessing and utilizing the resources of NSFNET.***//